NACME Planning Grant Proposal

This grant will enable the National Action Council for minorities in Engineering (NACME) to develop proposals for four major projects critical to the effort to broaden minority participation in engineering. These four projects are: (1) development of a set of evaluation instruments for assessing precollege program components and their impact on student progress; (2) development of workshops for engineering deans and faculty, focused on managing cultural diversity in the university environment; (3) development of a research agenda to study minority student attrition, based on an analysis of existing NACME data on dropouts; and (4) development of a community college articulation program proposal, targeted at minority students in high schools and two-year institutions.